RUI: Algebras, Categories and Monads in Computation and Semantics

Fundamental questions of programming language semantics will be examined through the utilization of algebras, categories, and monads in an effort to provide a systematic and conceptual approach to their interpretation and solution. Areas of investigation include algebraic fixed point semantics, categorical models with strong closure properties, axiomatic domain theory, monadic and comonadic computation, partial data types, invariant objects, and categorical iterators.